Seismic Design of Low-Rise Wood-Framed Buildings

This project studies the behavior of low-rise wood-framed buildings. It is intended to develop guidelines for do's and don'ts for designers and builders. A simple but realistic three-dimensional model for nonlinear analysis of low-rise wood-framed buildings will be developed and used. A mathematical tool will be produced to help understand the seismic performance of low-rise wood-framed buildings by predicting such characteristics as strength, deformation, ductility and damage potential. The model to be developed will enable the seismic behavior of low-rise buildings to be studied rationally and lead to improved standards and design methods.